Protein Transport and Chromatography with Gel-Composite Ion-Exchangers

Abstract Proposal No: 9709670 Proposal Type: Investigator Initiated Principal Investigator: Giorgio Carta Affiliation: University of Virginia This grant is awarded through the Separations and Purification Program sub-element of the Interfacial, Transport and Separations Program of the Chemical and Transport Systems Division. The principal investigator is Dr. Giorgio Carta of the University of Virginia. The research is concerned with the characterization of diffusional transport of proteins and other macromolecules in gel-composite ion-exchangers and with the use of these materials in protein chromatography. The materials are obtained by synthesizing functionalized polymer gels within the pores of a rigid support matrix such that an essentially complete filling of the pores is achieved. The gel is thus stable to mechanical forces and to changes in solution conditions, allowing chromatographic operations at elevated flow rates of the mobile phase. This research addresses the development of new technologies for process scale protein chromatography. The fundamental understanding of protein transport in gels will aid development of new protein separation technologies, especially those oriented to high volume rapid separations.